Expedited Awards for Novel Research: Effects of Pressure, Temperature, and Electrical Potential on the Interaction of Hydrogen and Deuterium with Pd, and Ti

Adsorption/solubility isotherms of hydrogen in palladium and titanium are determined using clean surfaces and accurate pressure measurements. The effects, if any, of applied electric fields on these isotherms are measured. If an effect is observed, the measurements will be extended to deuterium and the effects of pressure on the onset of "cold fusion" will be observed. This study examines whether there may be more efficient ways to charge the matrix for "cold fusion" than the lengthy electrochemical method used up to now. The work is also relevant to storage of hydrogen in metal matrices and to embrittlement of metals, one of the major causes of structural failure of metals.